Rich Probabilistic Models for Genomic Data

0345474 Koller

Stanford University has been awarded a grant to develop a framework for integrating the extremely large amounts of information being generated by high throughput technologies now in sequence, expression, pathways and interactions within the cell with each other, into a Probabilistic Relational Modeling (PRM) environment that will help us to understand complex interactions at the subcellular level. The interactions involved run the gamut from protein-protein interactions in single species to full pathways and higher level processes examined across multiple species. A dedicated modeling language will be developed within the framework. The system will be designed to focus on the strengths of each data set and on maximizing the synergism among data sets to gain the maximum possible useful information while minimizing the effects of the true statistical and methodological noise within each data set individually. The project will include multiple graduate and post doctoral students and will be used in undergraduate education as well.